RI: Small: Distributed Network of BacteriaBots

The project exploits the sophisticated and robust machinery of bacteria for actuation, sensing, communication, and control of a new class of micron scale robotic systems called BacteriaBots. This is achieved through (1) computational modeling of bio-actuation and sensing, (2) use of quorum sensing-based behaviors, and (3) use of mobile networks of BacteriaBots.

This effort contributes to the critical understanding required to advance the science of bio-hybrid micro-robotics and distributed control at reduced length scales. This holds enormous promise for socio-economic benefit by significantly impacting the fields of bio-sensing, medicine, micro-manufacturing and assembly, microelectronics, and bio-materials. A multi-tier education and outreach plan integrates research elements and discoveries into multi-disciplinary educational research experiences for K-12, undergraduate and graduate students.